Upgrading the Undergraduate Interdisciplinary Science Programs with X-Ray Microanalysis and Scanning Electron Microscopy.

This project will upgrade and expand the undergraduate curricula in biological and earth sciences through the acquisition of an energy dispersive X-ray scanning electron microscope. The microscope will be used for class laboratory exercises in intermediate and advanced level environmental science (biology and earth sciences) and "laboratory" biological science programs, and also for independent undergraduate research projects in these fields. Through use of the instruments, students will be able to observe examples of phenomena and principles discussed in texts, will learn widely used modern instrumental techniques, and will be enabled to pursue independent research using these techniques.